Birational geometry of higher dimensional varieties

The proposed research deals with topics in Higher Dimensional Complex
Algebraic Geometry (i.e. the study of the solutions of sets of polynomial equations in several complex variables). Two varieties (i.e. irreducible sets of solutions) are birational if they have isomorphic open subsets.
The main focus of this project is on natural questions in
the birational geometry of complex projective varieties
and in particular on problems related to the Minimal Model Program.

The birational classification of surfaces was understood by the
Italian school at the beginning of the twentieth century.
If a surface is not covered by rational curves then there is a natural
choice of a birational surface (known as the minimal model)
which has many useful properties. The Minimal Model Program aims to generalize these results to higher dimensions. This program is complete in dimension 3 (by work of Mori, Kawamata, Kollar, Reid, Shokurov and others) and is known to work for varieties of general type (by work of Birkar, Cascini, Hacon, McKernan, Siu and others). This project hopes to answer some of the remaining questions and conjectures that naturally arise in this context.